The 20th International Symposium on Shock Waves to be held at Caltech from July 23, 1995 through July 28, 1995

ABSTRACT Hans Hornung CTS-9509360 California Institute of Technology The 20th International Symposium on Shock Waves will be held at Caltech from 23 July 1995 through 28 July 1995. This is a conference that attracts over 400 abstracts from research groups world-wide. This event is held every four years, and has its origins in 1958. It is the principal forum for reporting on work on Shock Waves as well as their applications to aeronautics, mechanical engineering, physics, chemistry and biology. Abstracts is a wide variety of areas are considered for the program.